Computation in Refinement Logics for Type Theory

Computer science is concerned with building abstract structure in "information space". There are so many applications in other fields because these structures are so general and because computer hardware can realize them. Computer Scientist study the laws that govern the processing of information, and they create tools to assist in the task of building structures, testing and understanding them. Among the most powerful tools provided so far are programming languages and environments. But the field is now converging on ways to extend these environments to more powerful and general tools, called problem solving environments. This proposal is about the mathematical basis for one class of such system. The class of systems studied here is characterized by its relationship to logic. It has been discovered that a certain kind of formal logic provides a basis for both functional programming languages and problem solving environments. The idea is that constructive mathematical proofs can be interpreted as functional programs. This notion has now been studied for over a decade and tested in practice. Results have encouraged a much deeper study because the programming method suggested by these systems seems to be more reliable than ordinary programming and much more powerful. It is able to draw on results from theorem proving, logic programming and rigorous programming methodology. This work is concerned with details of how to bring these elements together. It is possible that the discoveries made in this area will significantly change the way people program and the way they solve certain kinds of precise problems. The area is currently the focus of a concerted effort in Britain, France, Sweden, Germany, and the U.S. Researchers feel that soon systems of the kind being tested will be widely used beyond the computer science laboratory. This research addresses some of the central theoretical problems that must be solved before that can happen. In particular it is concerned with certain ways that these systems can be augmented by their users (reflection) and with ways that decisions about solving a problem can be postponed in the process of systematic goal-directed problem-solving (or equivalently program development). The idea for postponement centers on the use of a special kind of variable called a logic variable. Results from this investigation will deepen understanding of the relationship between various uses of logic variables and reflection in other parts of computer science and logic and find use in the design of the next generation of problem solving environments.